Studies of Ion Implanted III-V Multilayer Heterostructures

The utilization of ion implantation to do in-site doping of GaAs/A1GaAs heterojunction structures in an MBE system is studied. This research will provide a basis for developments in a broad range of III-V material electronic devices for use in optoelectronics, high speed IC's, microwave circuit components, and monolithic structures.